Alice: A Collaborative Infrastructure Supporting EducationalUse of NREN - Phase I

TERC, in collaboration with three states and others, will create and implement the first phase of the development of server and client software that provides the functionality needed to make the National Research and Education Network meet the needs of precollege educators. The long-range goal is to facilitate the kind of network-based student and teacher collaboration which supports the reform needed in mathematics and science education. This will be achieved by simplifying access to NREN and providing software functionality that supports collaboration on the computers typically used in schools for telecomputing. Issues of technical and administrative infrastructure building, of marketing of educational services, and of controlling student use of NREN resources will also be addressed. In this phase of the work, TERC will work closely with teachers, mid-level networks, potential educational service providers, telecommunications experts, and its state partners to assess educational needs, technical resources, and software standards. A minimal set of the resulting specifications will be implemented, disseminated to participating states and other institutions, incorporated in TERC telecomputing-based projects, and evaluated.